CAREER: Securing Reconfigurable Hardware Accelerator for Machine Learning: Threats and Defenses

The proliferation of Machine Learning (ML)-enabled applications has fueled a pressing demand for high-performance computing hardware. As a reconfigurable device offering high power efficiency and low overhead, the field programmable gate array (FPGA)-based ML acceleration systems (FPGA-ML) have become the workhorse of ML computing and inference to support many applications in critical domains, including aerospace, defense, and autonomous driving. Although promising, the growing trend of FPGA-ML accelerators also presents new targets for adversaries to attack. This CAREER project will holistically investigate the FPGA-ML system security and integrate the scientific outcomes with educational activities. The research outcome of this project will generate new security components to the emerging FPGA-ML development toolchains and metrics to evaluate the security of real-world products built on these systems, as well as enable technology transfer of research results to the industry practice. This project contains a significant educational component and will attract K-12 students to pursue a STEM education and nurture and cultivate students to engage in this open research field.

This CAREER project systematically investigates the threats and defenses of the FPGA-ML systems. The scientific outcomes will significantly enrich the traditional works that mainly consider ML security from an algorithm aspect and neglect implementation peculiarities. There are three complementary research thrusts to investigate: (1) Run-time FPGA-ML integrity by studying the impacts of run-time disruption on FPGA-ML acceleration engine for different malicious objectives; (2) Design-time confidentiality by attacking state-of-the-art FPGA-ML systems to explore the potential attack surface; (3) Efficient and scalable defense solutions by characterizing the root causes of both run-time and design-time vulnerabilities of the FPGA-ML systems and developing cross-layer defense strategies at the circuit- and system-level to suit different application scenarios. The proof-of-principles will be applied in designing and prototyping secure FPGA-ML acceleration systems, and the cross-domain knowledge learned from this project will complement the broader AI-enabled cyberspace.